Targeted Molecular and Subcellular Laser Destruction at the Neuromuscular Junction

Dr. Robbins will attempt to use a novel technique to ablate single protein species from living tissue. This method will allow the molecular analysis of cell-cell interactions during development. The technique is based on the observation that the dye malachite green, when irraditated with a laser beam, destroys proteins within a very small radius of the dye molecule (on the order of the diameter of one protein molecule). Dr. Robbins will conjugate malachite green to ligands for the acetylcholine receptor, incubate exposed, living neuromuscular junctions to the conjugated dye, and irradiate small areas of the tissue with a laser. He will then use morphological techniques on the light and electron microscopic levels to determine whether acetylcholine receptors were specifically destroyed, leaving the neighboring molecules intact. A further aim of the study is to determine whether nerve terminals can be selectively destroyed using this technique in combination with ligands that bind selectively to nerve terminal surfaces. Destruction of nerve terminals and preservation of surrounding components of the neuromuscular junction will be assayed using electrophysiological and morphological techniques.